Student Travel Grants for the 2014 Network and Distributed System Security Symposium

The Network and Distributed System Security (NDSS) Symposium is held each February in San Diego, CA. It is a three day conference that brings together innovative and forward thinking members of the Internet community who design, develop, exploit, and deploy the technologies that define network and distributed system security.

This grant provides funding to assist US-based graduate and undergraduate students to attend this event. Participation in symposia like the NDSS are a critical part of these students' educational experiences by providing them the opportunity to interact with senior researchers and to be exposed to leading-edge work in the field. The support provided by this grant enable the participation of students who would otherwise be unable to attend the NDSS.